Localized Electronic States in Amorphous Semiconductors

9704946 Taylor This is a renewal project for the study of the electronic and structural properties of disordered semiconductors. This research will answer questions concerning the structure, defects and doping mechanisms in Group IV chalcogenide glasses at low chalcogen concentrations and in metal chalcogenide glasses at high metal concentrations. A second important component of the research will answer questions concerning the microscopic origins of optically- induced paramagnetism and of photodarkening in chalcogenide glasses, especially those in the two model systems mentioned above. The scientific approach involves a broadly based program that utilizes several growth techniques, magnetic resonance spectroscopy, optical spectroscopies, various combinations of optical and magnetic resonance techniques, and electrical measurements. The specific objectives are (1) to understand details of the local order, (2) to study the intrinsic defects, and their associated metastabilities, as a function of average coordination number, and (4) to identify the defects that contribute to photodarkening. %%% This is a renewal proposal for a continuing study of amorphous semiconductors. Amorphous semiconductors provide inexpensive alternatives to crystalline semiconductors for many electronic applications. One important example is the use of amorphous silicon for the switches (thin-film transistors) in flat-panel displays for personal computers and flat television screens. The use of these materials is hindered by changes that occur with time in the various electronic or optical devices that are currently manufactured. The information gained in this research will greatly increase our understanding of the behavior of electrons which are the carriers of electrical current. This information will confirm or refute specific models that have been developed to apply generally to all amorphous semiconductors. For example, the most important property of semiconductors that mak es them useful as switches of electricity is the ability to change the electrical conductivity dramatically via a process known as doping. This research will result in a more general understanding of doping mechanisms in amorphous semiconductors - an understanding that can eventually be used to manufacture more reliable devices. ***